Elimination of Certain Ambiguity Causing Constructs from Context-Free Grammars: An Algebraic Approach

Ambiguity in context-free grammars can be expressed in terms of algebraic equations and detected via an algebraic approach. This project involves the implementation of algorithms to detect ambiguity, identify certain ambiguity causing constructs, and transform these constructs into less ambiguous constructs.